Santa Clara University Robert Noyce Teacher Scholarship Program

Three year scholarships of $25,000 annually will be awarded to three successive cohorts of eight juniors majoring in mathematics or one of the natural sciences to earn secondary certification in the existing fifth-year teacher credentialing program. The new teachers will teach in one of two neighboring high-need school districts, East Side Union High School District (ESUHSD) and San Jose Unified School District (SJUSD). The scholarships will permit the approximate doubling of the number of STEM teachers produced annually at the university.

To aid the Noyce Teacher Scholars in becoming successful teachers, they experience an integrated support program that offers continuous access to mentorship opportunities from STEM faculty, education faculty, and high school master teachers. A key aspect of this integrated support program involves the tailoring of the current Beginning Teacher Support and Assessment (BTSA) induction programs that support new teachers during their first two years to specifically meet the needs of new science and mathematics teachers via summer workshops.